Girls Creating Games: Increasing Middle School Girls' Interest in Technology

The vast success of products like the "GameBoy" sends a clear message that technology is
the domain of boys. The Girls Creating Games Program is a demonstration project designed
to challenge this message by teaching girls to design and program a computer game. This
project is unique in its approach: it puts girls in the role of producers of technology, rather
than simply consumers. One hundred eighty middle school girls will participate in a study
to determine whether producing technology (computer game design) can increase girls'
fluency, interest, active participation and persistence in technology studies. The
specific project goals are to a)increase girls' knowledge, interest, attitudes, and
confidence with computers, b) increase adults capacity to support girls in technology,
and c) add to research on the kinds of programs and technologies that increase the interest
and persistence of middle school girls in technology studies and careers.

The proposed project will take place with small groups of girls after school and during
the summer in a small, urban county (70% White, 21% Hispanic) in California. It involves an
unusual partnership between four entities: 1) researchers and program developers from a
non-profit health promotion agency (ETR Associates); 2) school personnel and students
from New Brighton Middle School; 3) staff and youth from a Boys & Girls Club; and 4)
female technology students, teachers, and professionals from local colleges and
companies. This partnership is essential for building knowledge (e.g., identifying
effective program strategies to increase girls interest and persistence in
technology studies), and increasing social capital (e.g., building the capacity of
adult female role models, teachers, and staff to provide a supportive environment).

Teaching computer game design holds great promise as an intervention strategy for
increasing girls' interest in technology. Indeed, interactive games have an early
influence on theskills and attitudes that are the best predictors of future
technology-related behavior (Greenfield & Cocking, 1996; Levine & Donitsa-Schmidt,
1998; Subrahmanyam & Greenfield, 1998). Only two other known programs (with
elementary and high school students) have used game creation as an intervention
strategy or as part of a research-driven agenda (Kafai, 1995; Miller, Chaika, &
Groppe, 1996). Our work extends that research by working with middle school students
in an informal learning (out of school) environment, and using theoretically and
empirically-based program activities that build on girls development research.
Our project is also innovative in that it includes identity formation as part of the
program as a way to transform, not simply respond to existing gender roles
(Cassell & Jenkins, 1999). Our program strategies are designed to appeal to girls.
They include having fun with computers; linking technology with its real-world
application; focusing the game content on social issues; using a collaborative
instructional model; involving technical female role models, school teachers and
program staff; and assessing the impact of game design on participants as well as
the teachers and staff.

The proposed intervention will be evaluated using a quasi-experimental, pre-post test
design. Two hypotheses will be tested. First, compared to the control group, the
participants in the intervention group will report a greater increase in problem-solving
and computer skills, interest in computers, positive attitude toward computers, intention
to pursue computer studies, confidence using computers, knowledge about tech careers,
and support to pursue a career in technology. Second, the instructional model that uses
collaboration with peers and guidance from teachers, staff, and female role models
will increase the adults' capacity and interest to support girls active participation
in technology, and challenge stereotypes about who is good at computers. Data will
be collected using surveys, interviews, and student notebooks. The findings will result
in a replicable version of the program that can be used to increase girls interest in
technology and adults capacity to support them in other school and after school settings.